ARI-MA: Intelligent Model-Assisted Sensing System (iMASS) for Fast and Accurate Nuclear Material Interrogation

0736212
Jevremovic
This research will advance the capabilities for real-time nuclear sensors along with their system integration and control. This will be accomplished through advanced research and development in adaptive learning and control algorithms (to tune the sensors for better performance), computer simulated nuclear resonance fluorescence (to enable dynamic model-based tuning), and customized Monte Carlo simulation. The project will combine many approaches in software. Real-time, adaptive models that automatically learn are breakthrough ideas that will impact many fields. The investigators plan a summer fellowship program for up to 4 undergraduates per year and have plans to reach out to under-represented groups.